Quantum -QuBIC: Connecting the Quantum Dots: Theory of Quantum Computing in a Solid-state Implementation

EIA-0130400
Robert Joynt
University of Wisconsin-Madison

Title: Connecting the Quantum Dots; Theory of Quantum Computing in a Solid-state Implementation

A program of theoretical research on quantum computation in quantum dot structures is underway. In this type of quantum computer, the qubits are the spins of electrons trapped in a silicon-germanium semiconductor heterostructure. The error distributions and decoherence properties of these electrons are being calculated, and it appears that correlated errors and mutual decoherence are important in this dot implementation. The impact of these phenomena on quantum algorithms and quantum error correction schemes is being investigated. This is done by examining their effect in two paradigmatic quantum processes. The first is the quantum random walk, a simple example of an algorithm that can be implemented on a one- or two-dimensional array of quantum dot qubits. The second is the computation of the majority function. A particularly attractive feature of both problems is that it is interesting and feasible to do them in cases that require relatively few qubits. More general questions are also being addressed. Certain types of quantum algorithms will be more susceptible to certain types of errors. This leads to the possibility of quantum error-resistant algorithms, and the feasibility of this generalization of the similar classical concept is being determined.